Research Experiences for Undergraduates in "Nonlinear Science"

9322320 Campbell We will establish an NSF-sponsored "Research Experiences for Undergraduates" (REU) sites in "Nonlinear Science" at the University of Illinois Urbana-Champaign under the joint auspices of the Department of Physics and the Center for Complex Systems Research. In each of its three years the program will provide research experiences for eight carefully selected undergraduates in one of four broad "paradigm" areas of nonlinear science: deterministic chaos, solitons/coherent structures, pattern formation and selection, and adaptation and learning. The research will include analytic, computational, and experimental examples. ***